Playscapes: Designed Nature Environments To Promote Informal Science Learning

The University of Cincinnati Arlitt Child and Family Research and Education will conduct a two-year research investigation to document and understand young children's scientific dialog, interactions, behaviors, and thinking within expressly designed natural play environments called playscapes. Two existing environmental science-focused playscapes will serve as the informal context for the study. Pre-school children and their teachers at early childhood centers, Head Start programs and informal learning institutions such as zoos, nature centers, and museums will participate in the study. The Cincinnati Nature Center and the Cincinnati Playscape Initiative will partner with the University of Cincinnati for this research endeavor. The results of the study are expected to not only address a significant gap in the literature base related to self-directed play and young children's scientific thinking within playscapes environments, but the study also has the potential to inform the field more broadly about scientific learning and teaching across informal and formal contexts at the early childhood levels.

Nine research questions will frame the study and seek to investigate: (a) children's behaviors in intentionally designed playscapes, (b) children's scientific thinking in intentionally designed playscapes, and the relationship between access to the playscape environment and children's attitudes about science and their own scientist identities. The study sample includes over 200 children (ages 3-5) will be recruited from local university, child care centers and head start programs. Each child will participate in research activities at one of two test sites, with sixty children participating in research activities at both test sites. As part of the study, the children will visit the test sites at least three different times and will be asked to explore the playscape environments on their own, with other children, and with their teachers. Lavalier microphones will capture the students' self-talk and dialogs with others, as they explore the specially designed playscape environments. Other data collection methods include: behavior mapping, direct observation, dialog analysis, surveys, focus groups, and curriculum-based assessments. A team of researchers, including university faculty and graduate assistants, will employ inductive, deductive, and abductive analytical methods and reasoning to analyze and synthesize the data. Concurrently, an external evaluator at the Evaluation Services Center will employ a mixed-methods approach for the formative, remedial, and summative project evaluations.

An ultimate goal of the project is to use the research findings to provide a scientific base for the development of an early childhood approach that promotes scientific thinking and learning within self-directed, informal contexts.